Participant Support for 28th Conference on Stochastic Processes and their Applications, July 5 - 11, 2002, Melbourne, Australia

0202158
Shreve
The 28th Conference on Stochastic Processes and their Applications will be held in Melbourne, Australia, from July 5 to 11, 2002. This is an international meeting in probability, and representation by US scientists is important. This award will provide partial travel support to ensure adequate US representation at the meeting.